Organization of the 1998 Laser Applications to Chemical and Environmental Analysis Topical Meeting, March 9-11, 1998, Orlando, FL

CTS9730861 Mark G. Allen Abstract Travel and subsistence is provided to enable junior faculty and graduate students to attend the 1998 Topical Meeting on Laser Applications to Chemical and Environmental Analysis to be held in Orlando, Florida on March 9-11, 1998.